Optimal Base Isolation of Structures

This research is directed toward increasing the scientific communities' knowledge of base isolation systems, which offer potential for protection of structures from earthquakes. The project is directed toward optimal use of base isolation devices to achieve maximum protection from earthquake hazards. The research will use the results of previous studies to project furtherunderstanding of base isolation systems. Consideration will be given to the realistic characterization of the ground excitation and the supporting soil, the effects of friction in the base isolation system, the effects of hysteretic damping, the effects of torsion, the development of simplified procedures directed toward engineering practice, and the effects of mechanical properties of the system.